RUI: Paleomagnetic Phase of a Collaborative Study to Spatially and Temporally Delineate the Matuyama-Brunhes Polarity Reversal as Recorded in Tahitian Lava Flows

9805065
Hoffman

Available radiometric age determinations and previous paleomagnetic investigations on Tahitian lavas indicate that much of the island was experiencing volcanic activity some 780,000 years ago while Earth's magnetic field was undergoing its last change of polarity--the termination of the Matuyama reverse polarity chron. The P.I. proposes to continue a comprehensive paleomagnetic study of the recorded transitional field behavior at appropriate localities on the island. In particular, plans include extending sampling of the thick sequence of transitionally-magnetized lavas at the end of the Chemin des 1000 Sources in northern Tahiti, a section that has already provided a highly-detailed record of magnetic field changes well within the polarity transition. Precise 40Ar-39Ar age determinations will be conducted on these basaltic lavas at the University
of Geneva, Switzerland, with the ultimate goal of following in absolute time the process of field reversal as it developed in Earth's fluid outer core.